SHF :Small: Foundations of Permission-Based Object-Oriented Languages

This research project is exploring a new way of writing computer
programs, based on a new programming language Plaid. Plaid is the first
programming language to incorporate "permissions" natively into the
language. These permissions allow the programming language to more
accurately model things that change--for example, a connection to a web
site that might be interrupted and then later reconnected. Such a
permission-based language helps engineers coordinate on a software
project, making engineers more productive, and reducing bugs that
end-users see.

On a technical level, the project integrates permissions such as
"unique," "immutable," and "shared" into the language via a new kind of
type system, based on linear logic. These permissions express aliasing
information, and this aliasing information can be leveraged to do many
things, including safely changing the representation of objects at run
time and automatically parallelizing code. The project is investigating
the design of a single permission system that can address multiple such
concerns; investigating how models of inheritance, composition,
sub typing, casts, and polymorphism must be adapted to handle
permissions; and what design choices can best make such a language
practical for writing programs of significant scale and design complexity.